Chemical and Volcanological Investigations of the Axial Summit Caldera and Crestal Plateau of the East Pacific Rise 9-10 Degrees North

9402360 Perfit The PIs collected samples by rock coring and Alvin dives (Adventure I & II Cruises) on the ridge crest and flanks from EPR 9N area. In this project, they will obtain U-Th dates and geochemical analyses of these samples, and combine them with their photo interpretation to check their 3-D model of the magmatic system beneath fast- spreading ridge. Their goal is to determine magma residence times and magma residence times and magma generation and fractionation processes.